Nuclear/High Energy Physics (NuHEP) Research Center of Excellence

This award supports a collaborative interaction between researchers in the Center for Ultrafast Optical Science (CUOS) at the University of Michigan and Hampton University in their studies of acceleration of electrons through wavefields generated in high-field laser-plasma interactions. Recent discoveries in this area have led to observations of electrons of MeV energies, and the focus of the combined efforts of the CUOS and Hampton groups will be to characterize the electron beam emitted through the interaction and use these studies to determine those conditions of the interaction that would enhance the intensity and quality of the beam. Beyond the scientific component of the work, the postdoctoral associate would serve as the connecting link between the two institutions, thereby cementing the interaction between this Science and Technology Center and Hampton University, and HBCU institution, and enhancing the involvement of minority students in the research effort. Funding for this position is provided by the Office of Multidisciplinary Activities (OMA) of the MPS Directorate.